Detection and Study of Young, Extragalactic Supernova Remnants from High-Mass Progenitors

AST-9529232 Dr. Fesen will use this award to develop a new observational technique for identifying young supernova remnants in nearby galaxies. If successful, the observations could revolutionize the study of supernova remnants at early phases, which currently are largely undetectable in more traditional emission-line imaging or radio continuum surveys. ============================================